Object-Sharing Technology for Real-Time Systems

The objective of this project is to develop an object-based framework for synchronization and interprocess communication in real-time computer systems. This framework will integrate work on scheduling theory with work on delay-resilient shared objects. The term ``scheduling'' refers to the problem of sequencing tasks on a shared execution unit such that it is possible to determine a priori if the timing requirements of tasks are respected. A variety of scheduling policies will be considered in this project, spanning the spectrum from hard to soft real-time systems. By focusing on delay-resilient shared objects, this project represents a significant point of departure from past work on real-time synchronization. Delay-resilient objects are distinguished by the fact that they are not locked. The notion of a delay-resilient shared object builds upon recent promising work on wait-free and lock-free synchronization in shared-memory multiprocessors. Although such work has been ongoing for several years, this project represents the first comprehensive effort to integrate such objects within an object-sharing framework for real-time computing. From a real-time perspective, the key advantage of delay-resilient objects is that they do not give rise to priority inversions. Traditional object-sharing approaches for real-time systems rely on significant operating system support to deal with this problem. The proposed approach does not require such support, and thus entails lower synchronization overhead than traditional approaches. Another advantage of the proposed approach is that it can be applied across a variety of diverse platforms. Target platforms for this project include uniprocessors, shared-memory and message-passing multiprocessors, and workstation clusters. ***